Mathematical Sciences: Diffusive Reactive Transport Systems

The principal investigator will study a class of reaction- diffusion systems that model reactive, transport and diffusive phenomena. Such models arise in a variety of physical settings, including chemical processing, population biology, semiconductor theory, contaminant transport, geological modelling, reservoir flow, combustion theory and oncology. The investigation of the long term behavior of solutions and the formation of stable spatial patterns through boundary feeds is physically realistic and will lead to increased understanding of the development of spatial patterns in chemical models.